Travel Grant to Participate in the International Scientific Conference on Digital Libraries in Russia

This award supports travel expenses for the Principal Investigator and a Ph.D candidate to attend and present an invited paper of research results at the International Scientific conference on Digital Libraries to be held in Petrozavodsk, Russia in September, 2001.

The presentation by the Principal Investigator at this event serves multiple purposes. His area of research, image database security, is a critical one to the development of generally accessible international Digital Libraries. This conference is an important one for the active Russian Digital Libraries community and brings together international experts to discuss international research collaboration issues involved in building a global information infrastructure. Dr. Wang will be one of few US speakers and will continue to demonstrate the US digital libraries community's interest and support for Russian efforts in this area. Funding is being provided by the Division of International Programs.